RI: Travel Support for AI in Robotics Workshop

Proposal 0739286
"RI: Travel Support for AI in Robotics Workshop"
PI: Sebastian Thrun
Stanford University

ABSTRACT

This award will help subsidize the participation of seven American scientists in a workshop in Japan on "cognitive robotics", that is, robotics that integrates highly sophisticated mechatronic robotics with advanced AI and cognitive modeling. The workshop will bring together experts in mechatronic capabilities--a particularly strong aspect of robotics in Japan--and experts in AI and cognitive modeling--a particularly strong aspect of fifty-years plus of AI research in the United States--to address the problem of cognitive robotics. The workshop will be held Nov.30-Dec.1 at the Keidanren Conference Facility in Gotemba, Japan. While there are great strengths for tackling cognitive robotics in the USA and in Japan, to date there has been little scientific interaction, cooperation, and exchange between the two communities. To facilitate such a fruitful exchange, AFOSR's Asian Office of Aerospace Research and Development, initiated this meeting. This award will help subsidize the participation of seven US scientists in this Workshop.